Support for scientific activities of North Pacific Marine Science Organization (PICES)

9417111 Wooster This award will provide funding for U.S. ocean scientists, particularly those in the academic research community, to participate in the activities of the North Pacific Marine Science Organization (PICES). This organization was established in 1992 to promote and coordinate marine scientific research in order to advance knowledge of living marine resources, land-ocean and atmosphere-ocean interactions, ecosystem components and processes, resource usage, ocean response to global weather and climate change, and human impacts in the North Pacific. Participation by U.S. scientists in Annual Meetings, as well as in sessional or intercessional workshops, will be funded through this award. In addition, U.S. scientist participating in one of four standing scientific committees (Biological Oceanography, Fishery Science, Marine Environmental Quality, and Physical Oceanography and Climate) will receive travel funding for required activities.